ITR: Experimental Validation of Large-Scale Networked Software Systems

Large-scale networked software systems are hard to design, and even more
difficult to validate. Validation of such systems is increasingly
important, since they are more and more being called on to perform critical
functions. This validation difficulty stems from the inherent complexity of
these systems, and often is due to the fact that they are often designed to
adapt to variable workloads and operating conditions at the process, node,
and network levels. Incorrect operation during periods of dynamic
adaptation can lead to unpredictable and potentially hazardous
consequences. In order to ensure that such systems operate correctly in
critical environments, one must perform validations to confirm that they
will function reliably in the presence of faults/failures, have predictable
performance, and will continue to operate when intrusions occur. Validation
of multiple behavior dimensions (e.g., reliability/availability,
performance, and survivability) is also critical. This research will
develop the theory, methodology, and tools necessary to experimentally
validate the reliability/availability, performance, and survivability of
large-scale networked software systems. The intention is to develop a
comprehensive framework for experimentally validating large-scale networked
software systems. Taken as a whole, this work will provide a sound and
fundamental approach to validation of networked software and applications.